Synthesis of EM Soundings from the Pacific Seafloor

The application of magnetotellurics (MIT) will be used for the exploration and interpretation of oceanic basement. By using new analytical methods, MI data from 13 different areas will be interpreted and synthesized in terms of the nature of the oceanic basement within a single tectonic element, i.e. the Pacific Ocean.